Extremal graphs, hereditary and random structures

The PI and the co-PI study how l o c a l properties affect
the g l o b a l parameters of various combinatorial structures.
This is a very general framework of the so-called Turan number
problems. The PI and the co-PI emphasize five different aspects:
Turan numbers of triple systems, cardinalities of hereditary families,
geometrical/algebraic representations of graphs where Turan numbers
naturally emerge, they study more general coding theory problems,
and investigate random combinatorial structures,
especially the phase transition of various models of bootstrap
percolation.

Combinatorics, in other words Discrete Mathematics, studies
finite, but large structures, many of them arising from computer science.
Combinatorics is the theoretical basis of coding theory, computer
graphics,
computer science, cryptography and communication theory.
Combinatorists are looking for economical, fast and reliable ways to
store and search data structures.
A wide variety of combinatorial problems deal with
l o c a l properties, or use local probabilities
in order to determine (or estimate) global parameters to
describe the bigger picture.
This effect of local properties on global parameters is
the subject of this proposal.